Graduate Research Traineeships: Computer Science Human Interface Design for Access to Computers and NetworkedInformation

The interdisciplinary Graphics, Visualization & Usability (GVU) Center engages in teaching and research programs focusing on making computers accessible and usable by everyone. This focus is vital to the continuing growth of the computing industry and hence our national competitiveness, is an essential requirement for success in several Grand Challenges, an can enhance the productivity of workers. The Center draws on faculty from the College of Computing, Psychology, Industrial and Systems, engineering, and several other academic units. Among these three enumerated units, we offer seventeen courses in the filed of human interface design. Of the 34 faculty associated with interface design, collaborative work, interactive tutoring systems, multimedia, user interface software, information presentation, design of complex user-computer interfaces, virtual environments and algorithm animation. We believe our Center is the largest such interdisciplinary group in an academic setting in the HCI area. Trainees will be enrolled in any of the Ph.D. programs of the College of computing, ISyE or Psychology, depending on their background and interest. They will be supported to work with any of the HCI faculty in the interdisciplinary environment provided by the GVU Center.